FRG: Synchrony and Structure in Coupled Cell Systems

Golubitsky
0244529
A coupled cell system can be described by a collection of
individual interacting differential equations. Cell systems are
used as models in a variety of applications such as neuronal
networks, speciation, arrays of Josephson junctions, and gene
dynamics. In this Focused Research Group (FRG) project, the
investigators develop a mathematical theory for coupled cell
systems and with colleagues explore implications of that theory
in applications. The network architecture is a graph that shows
the couplings between cells and which cells and couplings are
identical. Symmetries in the network architecture have been used
previously to explore certain properties of solutions to cell
systems, such as synchrony or traveling waves. Symmetry, however,
applies directly only to the most regular of networks. For a
larger class of coupled cell networks, local symmetries defined
on part of the network can replace symmetries as a predictor of
interesting and important dynamics. These local symmetries form
a groupoid and it is this groupoid structure that is used to
analyze properties of solutions and transitions between solutions
in coupled cell systems. The investigators and students develop
a theory of robust synchrony and investigate synchrony-breaking
bifurcations in coupled cell systems (for example, network
architecture often forces Takens-Bogdanov singularities to occur
in codimension one at such bifurcations). They also investigate
the consequences for coupled cell systems of particular features
of the internal equations of single cells, such as symmetries and
fast/slow variables.
Symmetry and symmetry-breaking have been used widely by
scientists and mathematicians to investigate a variety of
physically and biologically interesting topics, including
important types of fluid flows, crystal lattices, the existence
of elementary particles, and the characteristic markings of the
skins of tigers and leopards. The crucial feature of this
approach is that it is model-independent in the sense that in
appropriate situations symmetry permits the development of a menu
of possible outcomes and the physics or chemistry or biology
chooses from this menu. Indeed, the theory of coupled cell
systems with symmetry has been applied succesfully to the
analysis of different gaits in animals, pattern formation in the
visual cortex, and speciation. Relaxing the requirement that the
network under consideration has symmetries extends the
applicability of this approach to a wider range of problems, in
particular to models of gene networks, as well as other network
models from neuroscience. In these applications it is rare that
the exact model equations are known. It is therefore important
to develop mathematical tools that study model-independent
features of solutions, tools that focus on solution properties
that are determined by the general structure of the equations
(such as network architecture) rather than by the details of the
equations. This approach will benefit researchers outside of
mathematics by describing a menu of possible dynamics that a
network can be expected to exhibit.